U.S.-France Cooperative Research: Geometric and Symbolic Dynamics

This three-year award provides support for US-France cooperative research on fundamental problems in geometric and symbolic dynamics. The collaboration involves research teams from University of Southern California, Rice University, University of Northern Texas, the Mathematics Institute of Luminy and Theoretical Physics Institute in Marseille, France. The US and French teams are led by Luca Zamboni of the University of North Texas and Pierre Arnoux of the Mathematics Institute of Luminy. The proposed project is an interdisciplinary study of various geometric and symbolic dynamic problems, which arise in mathematics, physics, and computer science. Problems to be studied include rational mappings on the Julia set, parabolic maps, and Anosov flows on compact manifolds. The US investigators bring to this collaboration expertise in ergodic theory and dynamical systems. This is complemented by French expertise in discrete mathematics, number theory, mathematical physics, and computer sciences. The project will advance fundamental understanding of dynamical systems.